Symposium on the Interactions of the Auditory and Mauthner Cell Systems; August 9-14, 1992; Montreal, Quebec, Canada

A conference entitled "Symposium on Interactions of the Auditory and Mauthner Cell Systems" held in Montreal, Canada in August, l992 is sponsored in conjunction with the annual meeting of the International Society of Neuroethology. This conference brings together, for the first time, an internationally recognized group of neuroscientists who work on the neurobiology of Mauthner neurons which trigger the acoustic escape reflex in fish and experts on the auditory system. The conference enhances understanding of how these two major systems interact and control sensorimotor coordination by the brainstem. Proceedings of the conference will be published as a special issue of the major scientific journal, BRAIN BEHAVIOR AND EVOLUTION.